Study and Modeling of Nonlinearity in Earthquake Strong Ground Motion

9972987
Lavalle, Daniel

To study and understand the phenomenology of nonlinear soil behavior and its contribution to earthquake ground motion, it is necessary to devleop a model tht captures the essential physics of nonlinerarity of soils. This model will fully include nonlinear effects: anelasticity, hysteric behavior, viscosity and pore water pressure, A critical feature of the model will be its capacity to simulate, with a minimum set of easily measured physical parameters, situtations ranging from laboratory data on soils to numerical model to explore the effects of nonlinear soil response on ground motion. Numerical experiments are designed to compare the qualitative nonlinear features in computed and real earthquake signals. This will determine the dependence between model parameter amplitudes and the magnitude of nonlinear effects in the signal.